SBIR Phase I: Bioassay Chip for Massively Parallel Detection of Superparamagnetic Nanospheres using Spin Dependent Tunneling

This Small Business Innovation Research Phase I Project seeks to demonstrate the
feasibility of integrating vast numbers of microfluidic channels with Spin Dependent
Tunneling (SDT) sensors on a chip. These sensors will detect flow of nanoscopic
superparamagnetic particles of the type typically used for separations and as labels in
bioassays. The immediate goal is to demonstrate and evaluate particle detection in single
channels. Ultimately, the proposed work could lead to a biochip with 1000 parallel
microchannels, each able to detect the passing of single superparamagnetic particles at
the rate of 1000 / second: a total detection rate of 1,000,000 particles / second! The
SDT sensors enable this high capacity because they can be fabricated in sub-micron sized
elements, integrated with standard silicon integrated circuits, and combined with typical
MEMS and microfluidic structures. They are the latest and most sensitive sensors in the
class of ferromagnetic thin film materials including Anisotropic Magnetoresistance (AMR)
and Giant Magnetoresistance (GMR). This new biochip tool may have significant utility
for detection of cells, proteins, biological pathogens, pollutants in fluids, and performing
DNA analyses.